Light Emission From Silicon Nanocrystals Manufactured by Spark-Processing: A Novel Technique for Preparing "Porous Silicon" Under Controlled Conditions

9415358 Hummel The proposed research is aimed towards increasing the level of sophistication in our understanding of the electronic structure and of the materials and processing variables that influence photoluminescence in nanocrystalline ("porous") silicon. We will develop, investigate, and characterize nanocrystalline silicon which has been produced by spark processing, a technique that is markedly different from commonly employed preparation methods (i.e., anodic etching). We intend to develop further understanding of the mechanisms responsible for the photoluminescence of spark processed nanocrystalline silicon and to possibly produce an efficient light emitting test structure. %%% The proposed research has high likelihood for leading to new scientific discoveries and insights into basic mechanisms of light emitting silicon. Research of this type on "porous" silicon may eventually lead to efficient silicon-based light emitting diodes, advanced display systems, optical memories, or possibly lasers. An important feature of the program is the training of graduate and undergraduate students in a fundamentally and technologically significant area of materials and processing research. This research will contribute to improving the general performance of advanced devices and integrated circuits used in computing, information processing, and telecommunications. ***